Travel Support for National Science Foundation's Science, Technology, Engineering, and Mathematics (NSF STEM) Careers Fair 2013; Dulles, Virginia; September 27-28, 2013

The University Corporation for Atmospheric Research (UCAR) proposes to staff three booths at the STEM Careers Fair sponsored by the National Science Foundation and U.S. Representative Frank Wolf in Dulles, Virginia in September 2013. The goal of the fair is to provide and opportunity for science-related organizations to showcase some of the amazing STEM research and education activities taking place throughout the United States and to highlight the vast diversity of STEM career possibilities.